A New Programming Language and Environment

This project is an attempt to improve the state of the art in the development of programs, particularly for scientific computing. The work includes the development of a new procedural programming language, Polya, the development and refinement of ideas on program description in the `Gibbs' style, and the implementation of a workstation programming environment. The term `Gibbs' denotes a program description that should make it easier to write understandable descriptions of scientific programs, so that scientists can publish descriptions that can and will be read by others. One goal is to improve the state of the art of software engineering in one of its crucial areas, the re-use of program parts. This will be done, in part, through new ideas on modules and their use in Polya. A second goal is to provide scientists with a language and environment that will increase their effectivity in writing software for supercomputers and other machines. Direct involvement of physicists and other scientists at Cornell will ensure that the resulting system is suitable for their use. This project is split funded between NSF and DARPA, with the major contribution coming from DARPA.